Career: Socio-cultural Development of Mathematics Discourse as a Framework for the Design of Mathematics Instruction

This project will study the development and use of mathematics discourse as a function of the cultural activities in which students participate at home, in their local community, in the larger community, and at school. This study would extend work by prior researchers by investigating the influence of culture and socioeconomic status (SES) on the discourse practices developed by people to deal with concepts such as measuring, counting, predicting, comparing, and contrasting as related to a range of activities. Also in contrast to similar work by others, this research will focus on analyzing actual activities rather than participants' later descriptions of those activities. The results of this research will inform efforts to understand cultural and SES differences in mathematics achievement and to provide equal mathematics learning opportunities for all students.